Characterization of Salicylic Acid-Binding Proteins in Plant Defense Responses

Plant disease has a major negative impact on food and fiber production. Currently, worldwide crop losses due to disease alone are estimated to exceed $100 billion annually, despite the extensive use of potentially toxic fungicides and pesticides. A variety of alternative strategies are being developed to protect plants against disease. One approach is to induce the plant's own natural defenses. This strategy is attractive since it can provide protection against a broad spectrum of pathogens. Broad-spectrum resistance to a wide array of pathogens, known as systemic acquired resistance (SAR), can be activated by infection with a given pathogen or treatment with SAR-inducing chemicals such as salicylic acid (SA) and its synthetic functional analogues, INA or BTH. In addition, while the initial perception and first few steps of the resistance signaling pathway(s) are probably distinct for each pathogen-plant interaction, these signals are thought to converge on a limited set of defense pathways. Thus, identification and characterization of the components involved in these common pathways should provide an opportunity to manipulate resistance to a broad spectrum of pathogens. Furthermore, the development of strategies that control disease by manipulating endogenous plant defense responses will be very important for sustaining agricultural production and improving our environment and health.

It is now well established that SA plays a key role(s) in the development of resistance in many, but not all, plant-pathogen systems. While our understanding of SA function(s) in disease resistance is far from complete, it is becoming increasingly clear that its role(s) is complex. Initially, SA was shown to activate a subset of defense genes (such as the PR-1, PR-2, and PR-5) and enhance disease resistance. More recently, it has been shown to potentiate activation of a variety of defense responses by a second stimulus. Furthermore, there is mounting evidence for a self-amplification loop involving H2O2 accumulation, SA synthesis, and host cell death. This increase in the complexity of SA function(s) in defense is matched by the discovery in tobacco of multiple proteins with which SA interacts. An understanding of SA function(s) in defense against microbial pathogens will require the identification and characterization of these proteins.

Characterization of SA effector proteins is likely to have implications beyond plant disease resistance. For example, it recently has been demonstrated that several plant genes controlling resistance to nematodes and insects share motifs, such as leucine rich repeats and nucleotide binding sites, with resistance genes for viral, bacterial and fungal pathogens. Thus, deciphering the SA-mediated signal transduction pathway(s) initiated by microbial pathogens is likely to impact studies on plant responses to nematodes and insects. Furthermore, there is increasing evidence that SAR shares many similarities to innate immunity in vertebrates and invertebrates and, thus, probably evolved from a primordial defense system present in the common ancestor to plants and animals. Elucidating the molecular mechanism(s) of disease resistance in plants therefore is likely to impact veterinary and human medicine.

The major objective of this project is to complete purification of the chloroplastic SABP3 and the mitochondrial SABP4 and clone their corresponding genes. Characterization of these two proteins and their encoding genes will also be initiated. The properties and functions of these two SABPs will also be compared to those of SABP2, which is a lower abundance protein with high affinity for SA. These comparative analyses should enhance our understanding of how different SA effector proteins mediate SA's complex role in disease resistance.

Standard biochemical, molecular and genetic approaches will be used. Protein purification will involve conventional ion exchange, reverse-phase and gel filtration chromatography as well as affinity chromatography with a SA analogue. Cloning will be based on peptide sequences of the purified proteins and will utilize degenerate oligonucleotide primers for PCR amplification. The copy number, distribution and expression pattern of genes for SABP3 and SABP4 will be determined as well as their subcellular location. A key aim is to determine function of the SABPs. The PVX-based gene silencing method pioneered by David Baulcombe's group will be employed for functional studies of both proteins. In addition, sense and antisense SABP3 and SABP4 transgenic tobacco will be constructed. Once the Arabidopsis SABP3 (or SABP4) ortholog has been obtained, it will be used not only to generate SABP3 (or SABP4) over- and underexpressing transgenic Arabidopsis but also to screen for SABP3 (or SABP4) mutants in libraries of insertion mutants of Arabidopsis using a PCR-based approach.